Efficient Light Transport Algorithms for Computer Graphics

Many realistic image synthesis algorithms have been devised, but unfortunately they tend to be very inefficient, often requiring hours or days of calculation. As a result, the visual cues provided by these algorithms (shading, shadows, transparency, reflections, etc.) still have not been used routinely by applications requiring visualization, primarily because they are not supported in real-time on current generation graphics workstations. However, both increased performance and greater functionality can be expected in future generation workstation. This research project develops efficient high quality image synthesis algorithms. The project will attack several specific areas. Continuing to develop the theory behind rendering so that it has a sound basis in physics and mathematics continuing the development of fast hierarchial algorithms based on wavelets for solving the rendering equation. Investigating various hybrid algorithms that combine the best features of the finite element and Monte Carlo approaches. Finally investigating various issues that result from the need to handle very large, complex environements. The algorithms will be implemented in an experimental image synthesis system that is being developed and they will be tested on a variety of different scenes and environments.